The Trail of Time: Integrating Science and Education at Grand Canyon

0122853
Karlstrom

This is a planning grant for a Trial of Time exhibit at the Grand Canyon, which will be the centerpiece of an effort to provide a unique and dynamic interaction of scientists, educators, the National Park Service and geoscience students of every level and age. The Trail may be integrated with the "Heritage Education Center", a concept that is evolving at the Park. Once the scientific and information technologies infrastructure exists, the PIs will develop geoscience education components at three separate educational levels: a college-level curriculum component, a K-12 component, and an informal education component. The spectacular and varied geology of the Grand Canyon and the Trail of Time present an unparalleled educational opportunity at all these levels.